RUI: Communal Nesting and Genetic Demography in the Four- toed Salamander

The factors that affect the growth and decline of populations in nature remain elusive, in part because the importance of social interactions has been underestimated. Community nesting behavior in a salamander species and the relation to behavior and population dynamics will be studied. Specifically, it will be determined whether limited nest site plays a role in causing communal nesting, and whether communal nests are the result of aggressive or cooperative interactions. Results may indicate that existing predictive models of population growth that ignore behavior are inadequate. In addition, data derived from this detailed population study may provide insights into the causes of an apparent decline in amphibian populations in eastern forests.